Digital Government: Challenges in Statistical Digital Government: A workshop promoting Agency-Research institution interaction

EIA-011777
Carol A. Hert
Syracuse University

Digital Government: Challenges in Statistical Digital Government: A Workshop promoting Agency-Research institution interaction

This workshop will bring together the grantee researchers in the Digital Government program who are working in areas related to the collection, maintenance, delivery and use of statistical data. Attendees will include researchers and agency employees and upper-level managers. The research technologies developed under theses grants in their first year or two will be demonstrated and there will be an opportunity to discuss mechanisms for transitioning these laboratory technologies to operational production at the participating agencies. In addition, participants will discuss and bring up to date a research agenda for work on information technologies in statistical settings